Global Communications Research Student Support

This award provides funding support for 10 full time students from US-based institutions to attend the IEEE Global Communications Conference, the premier telecommunications event for industry professionals and academics from companies, governmental agencies, and Universities. This international conference is held in Miami on December 6-10, 2010. For over five decades, IEEE's Global Communication Conference has brought together engineers and professionals from around the globe to share ideas and new perspectives on a wide range of communications technologies. By promoting achievement and innovation in technology and engineering. This conference facilitates the assembly of prominent scientists from academia, governments and industries to discuss the emerging and multi-disciplinary frontiers of networking and communications? technology. This Conference organizes a number of free tutorial sessions in several major and timely areas of communications and networking. Further to the above learning opportunity, the students can also attend various workshops that are organized for this event and become familiar with the latest trend and advancement in the area of information and communications technology. In addition, this Conference integrates research and education, and provides an environment which stimulates the collaboration among various disciplines. It also provides a unique opportunity to further enhance and raise the knowledge of students specifically underrepresented minorities and women students and in general trains skilled and educated workforce for our society. Upon their return, these students can share their gained knowledge and experiences with other students and faculty in their respective Universities.